SGER: Preparation for Preservation of the National Archive of the Albanian Lexicon

9907925
Newmark

This Small Grant for Exploratory Research will enable Dr. Vladimir Dervishi, an Albanian colleague of the Principal Investigator, to travel to Tirana, Albania, to determine the feasibility of a project to preserve the National Archive of the Albanian Lexicon (NAAL), and, if it is feasible, to determine the necessary initial arrangements to allow the project to get under way.